The Contribution of Delocalized Electronic Excitations to Chemisorption on Transition-Metal Oxides: Model Studies Using Cr-Doped V2O3

ABSTRACT CTS-9610140 Professor Victor E. Henrich of Yale University is being funded by the Kinetics and Catalysis-CRP-CTS and the Solid State Chemistry-DMR programs. He will investigate the contribution of delocalized electronic states to chemisorption on transition-metal-doped oxides, taking as model Cr-doped V203 single crystal. The electronic structure of the model catalytic oxide will be varied independently from the structure over a wide range of doping with Cr. The surface electronic structure will also be controlled by taking advantage of the hysteresis of the metal-insulator transition with temperature. The system will be studied with UHV techniques (UPS, XPS, LEEDS, HREELS, Auger, inverse photoelectric techniques) and by chemisorption and TPD of probe molecules such as CO, H20, O2, and NO. This work is of relevance to fundamental chemisorption and catalysis, surface science, and materials science.